TCHCS: Hybrid Satellite/Terrestrial Network for Seamless Localization and Communication

ECS-0636519
M. Win, MIT

We propose a hybrid satellite/terrestrial system for seamless localization and communication, in which satellite links serve as a backbone for communication, while GPS provides positioning references for the terrestrial anchor nodes. UWB transmission between terrestrial nodes (anchors and GPS-denied agents) enables accurate localization and robust wireless communication in situations where narrowband techniques may fail. The combination of these technologies in a hybrid network will extend the localization and communication capabilities beyond the boundaries of current systems.

Research
This project aims to develop basic research in support of seamless location-awareness and communication for large, dynamic networks. To achieve this objective, we will:
. formulate an analytical framework for cooperative localization;
. develop localization algorithms suitable for dynamically changing networks;
. determine optimal anchor node placement strategies under different constraints; and
. investigate optimum combining methods for anchor and satellite relay diversity.

Education
Primary educational goals are to integrate research results into graduate coursework and to further develop the multidisciplinary laboratory at MIT.

Intellectual Merit
This research will enable the design and analysis of efficient distributed algorithms for cooperative UWB technologies, optimal anchor placement, and satellite relay diversity techniques. It will additionally provide novel methodologies for the fundamental understanding of hybrid satellite/terrestrial networks.

Broader Impacts
This research will facilitate new technologies for future wireless networks. The framework and methodologies will be integrated into standardization efforts, teaching materials, and textbooks. This project will create a cadre of engineers, including women and minorities, who will help develop and operate future hybrid systems.